Society and Settlement in a Territorial State: Survey and Excavations at the Outer Town of Ayanis, Turkey

With National Science Foundation support, Dr. Elizabeth Stone and her
colleagues will conduct archaeological research in the settlement area
surrounding the Urartian fortress of Ayanis, located on the shore of Lake
Van in Eastern Turkey. Occupied for only a single generation around 650
B.C., this city covers at least 80 ha. Prior work on the citadel has
revealed extensive fortifications, large scale storage facilities and a
pillared hall/temple complex, of the kind associated with the
administrative elite at other Urartian centers. Ayanis is the only
Urartian site that currently offers an opportunity to investigate the
governed as well as the rulers, and an investigation of the outer town,
through mapping, shovel test survey, magnetometry and selected excavation,
commenced in 1997. With NSF support Dr. Stone's team will extend and
refine its study of the relationship between the denizens of the fortress
and those of the outer town. Shovel testing will define the limits of the
settlement and extended magnetic field gradient survey will reveal
subsurface architectural patterning over a substantial portion.
Excavations will be conducted in areas within the outer town that exhibit
differential patterning in the magnetometry. Analysis will focus primarily
on high status materials such as red polished ceramics and bronzes that may
indicate interactions between the central government and the larger
population, and on economic reconstruction. Specific methods to be
employed include: ceramic petrography; radography of ceramics to determine
whether they were wheel-made or hand-made; neutron activation analyses of
ceramics and bronzes to determine chemical composition; analysis of faunal
remains; phytolith analysis; micromorphological analysis; statistical and
spatial analyses of domestic artifact assemblages; the use of GIS to
examine the spatial distribution of activities.

The goal of this project is to determine whether the principles used by
modern city planners can be modified to help identify key organizational
distinctions in ancient cities and states. The variable distribution of
people and institutions within the urban framework may be understood to
reflect fundamental differences in the structure of ancient societies,
between hierarchically organized territorial states and more
heterarchically organized city states, but as yet too little work has been
conducted on urban organization in different archaic states to be certain
of this. The data generated by this project will make clear the
organization of an urban center in an archetypical territorial state. This
research is important for several reasons. It will provide data of
interest to many archaeologists and students of urbanism on urban planning
and its relationship to social organizationm, and a paradigm of the
material imprint of a state that is known to be highly centralized. It
will foster Turkish-American academic cooperation, and its results should
help in the understanding of early complex societies that were either not
literate, or whose writing has yet to be deciphered.